Acquisition of a High Resolution Inductively Coupled Plasma Mass Spectrometer at Moss Landing Marine Laboratories

0116844
Coale
This award to San Jose State University will provide support for acquisition of a high resolution inductively coupled plasma-mass spectrometer for research in biological, chemical and geological oceanography and related fields at the Moss Landing Marine Laboratories. It will serve a broad and diverse population of researchers, faculty and students from the California State University system and other researchers in the Monterey, California vicinity. San Jose State University, a non-Ph.D.-granting university, will contribute about 23% of the cost of this project from non-federal funds.
***